Conferences/Workshops on Partial Differential Equations and Related Analysis and Applications

This award provides support for travel and local expenses for participants in three meetings during the 2009-2010 academic year at Northwestern University:
(A) Conference/Workshop on Complex Geometry and Partial Differential Equations (October 24-27, 2009);
(B) International Conference on Nonlinear Partial Differential Equations and Related Analysis and Applications (March 20-24, 2010);
(C) Workshop on Local and Global Analysis of Eigenfunctions (June 3-7, 2010).

The meetings are part of an "Emphasis Year in Partial Differential Equations and Related Analysis and Applications" to be held at the university. The goal of this program is to develop new connections between analysis of partial differential equations and their application in other science and engineering disciplines.

The meetings will provide opportunities for researchers in applied analysis, including senior investigators, graduate students, and recent Ph.D. recipients, to develop working relationships with one another, and the emphasis year is likely to catalyze new interdisciplinary research projects. The meetings encourage participation by, and provide support for, members of groups underrepresented in the mathematical sciences. Dissemination of the activities via web postings and published conference proceedings is planned.

For additional information, see:
http://www.math.northwestern.edu/news/conferences.html